High Temperature Deformation of Lower Mantle Minerals Phases in the Diamond Anvil Cell

Seismic anisotropy is observed in many regions of the deep Earth and is believed to be due to texturing of mantle rock as a result of solid state convection. Thus observations of seismic anisotropy can be used to interpret the dynamic processes occurring in the Earth's interior. However, this requires that the relationship between deformation geometry, texture development and seismic anisotropy are well understood for the appropriate mineral phases. In the upper mantle where deformation mechanisms are well understood, interpretation of seismic anisotropy in terms of mantle flow has been highly successful. However, in deeper parts of the Earth, little is known about the deformation mechanisms of the major mineral phases such as MgSiO3 perovskite and post-perovskite. This is largely due to the fact that pressures needed to stabilize these phases are beyond the range of conventional deformation devices. The diamond anvil cell combined with radial diffraction technique can be used to study deformation and texture development in these phases, but until recently these experiments could only be performed at room temperature. Since textures can be affected by temperature, it is problematic to extrapolate these results to the deep Earth where temperatures are high. Recent developments now allow diamond anvil cell deformation experiments to be performed at lower mantle pressures and temperatures. This project will use this new technique to study texture development and deformation mechanisms in lower mantle mineral phases at high pressure and temperature conditions.

The significance of this project is that it will establish an experimental basis for linking seismic observations to deformation structure in the very deep Earth. This will lay the groundwork to allow the use of seismic data to map flow patterns in the lowermost mantle. Understanding the dynamics at the base of the mantle will provide new insight into the mechanics and geometry of mantle convection. A better understanding of mantle convection, in turn, has implications for plate tectonics, mantle geochemistry, and thermal history of the Earth. In addition, new technical developments resulting from this project will be available to general users at the Advanced Light Source at Lawrence Berkeley National Laboratory and thus will serve the broader scientific community. Furthermore, the capability to perform high pressure and high temperature deformation studies has application beyond the field of geophysics and will also advance knowledge of material science at extreme conditions.